OPTION 1: Small-Business ERC Collaborative Opportunity for the Commercialization of an Extreme Ultraviolet source at 13 nm for EUV lithography tool inspection

Overview:

In this project, KMlabs will work with the currently active ERC in EUV Science and Technology
in an effort to optimize and commercialize a tabletop coherent extreme ultraviolet source
based on high-order harmonic generation (HHG), targeted specifically for 13.5 nm wavelength.
The end goal of this project is to produce a commercial prototype that can produce efficient
13.5 nm light to support EUV lithography tool development. Such a small-scale laser source
can be used for a variety of lithography support applications including optics characterization,
metrology, and mask inspection, which can help to ensure the rapid deployment of this critical
technology, currently planned for ~2015.

Intellectual Merit :
CU-Boulder, as a part of the EUV ERC, has been developing coherent EUV technology for more
than a decade. Their recent work has led to a more comprehensive understanding of how to optimize
the HHG upconversion process to generate EUV or x-ray light at a particular target wavelength.
This for the first time allows us to identify specific approaches that may allow for significant
(up to 3 orders of magnitude) increases in coherent flux capability at 13 nm.
KMlabs has proven track of record for successfully commercializing cutting edge scientific
results—for example the eXtreme Ultraviolet Ultrafast Source (XUUS), introduced in 2009. The
XUUS is a broadband coherent ultrafast EUV source optimized to generate 30 nm light, and >15
XUUS setups have been delivered to research customers worldwide. Optimization of this source
for 13 nm will make it possible to address a much greater range of industry needs. We have
identified three possible approaches for optimizing 13 nm flux. In this project we plan to
perform a direct comparative evaluation of these approaches. Based on our physical understanding,
we believe we can determine the global optimum for HHG conversion to 13 nm.

Broader Impacts :
KMlabs and the EUV ERC will each leverage their technical strengths, and this project will
serve to leverage the impact of EUV ERC technology on the science and technology enterprise.
The rapid advance of microelectronics technology, as described by Moore’s law, has been a
major driver of the global economy. This advance has been driven primarily by progress in
lithography that allows for shrinking feature size. Current visible wavelength tools are straining
against fundamental limits, and the International Technology Roadmap for Semiconductors has
been anticipated a shift to EUV lithography for quite some time. The timeline for EUV had
repeatedly experienced delays because the use of EUV light, which is strongly absorbed by
all materials, is radically more difficult to work with than visible/UV.
Nevertheless, recent progress in 13 nm EUV light sources for lithographic exposure has made
its adoption for the 22 nm node-size in the next generation computer chips a high priority.
EUV lithography remains untested at the systems and large-scale production level, with many
unknowns. Improved capabilities for mask defect detection and characterization, for characterizing
optics degradation with long-term use, and for tasks such as alignment and quality control,
can all benefit from a usable tabletop at-wavelength laser source. An HHG-based coherent 13
nm EUV light source is a relatively low cost, small-scale, contamination-free coherent source
suitable for industrial application, and which has already been proven to enable new capabilities
such as coherent diffractive EUV imaging with near-wavelength resolution, and for materials
characterization. KMlabs plans to build on this proposed work in future with development of
reflectometer/ellipsometer instruments, as well as an inspection microscope for EUV lithography
applications.